Quantum Measurement at the Mimit? Idealization, Emergence, and Spontaneous Symmetry Breaking

Project Summary
The intellectual merit of this proposal is to argue for a new solution to the measurement
problem (MP): a solution under the idealization of macroscopic limit (ML). MP is one of the main
problems, if not the problem, at the foundations of physics. Because this is the last, and the most
important, part of my multi-stage effort that in the past six or so years has produced works on the
nature of idealization and approximation, of model-building, of thermodynamic limit, of phase
transitions and critical phenomena, of laws of nature, and of classical and quantum spontaneous
symmetry breaking (SSB), some of which are supported by a previous NSF grant (No. SES-
9910889), its results, apart from their own merit, will validate and improve on results in those areas.
This final project may be seen as a test and showcase of my previous contributions to philosophy of
science. The difficulty of MP centers on an apparent contradiction between what theories
hypothesize happens at the micro-level and what happens at the macro-level. All existing attempts to
solve the problem make what seems to be an inescapable assumption that all systems involved are of
finite number of degrees of freedom (or finite). But finite quantum systems harbor ineliminatable
superpositional effects, just as all finite thermo-systems harbor fluctuations; and such effects seem to
make a rigorous solution of MP impossible. I propose that we drop the assumption. There is a
sound and rigorous mathematical way (the algebraic approach) to imagine, with properly taken limits,
that the systems involved are of infinite number of degrees of freedom (or infinite). Moreover, SSB
is only possible under ML, and it can be used to replace the notion of the 'collapse' of wave functions
in the orthodox formulation. The broader impacts of this project are many-fold. Given its nature,
this project will mainly produce research papers (and possibly a monograph) and lectures or talks to
audiences of both experts and general public interested in philosophy and physics. Because the
project tackles MP, the arguably single most important problems in the foundations of physics, the
reverberation of its results is far-reaching. Historians of quantum physics and of the revolution of
modern physics will find the spirit of the proposed solution closer to the views of the founders of
quantum physics (Bohr et al and the Copenhagen school). Researchers interested in the symbiotic
relationships between disciplines of science will find it interesting to see how a recalcitrant orthodox
position in quantum physics -- the Hilbert-space approach -- is unseated (if I am right) by results in
solid state physics; or how the 'foundation' of quantum physics is shaken by models in solid state (a
much less fundamental and hence neglected area in foundational studies). A solution to MP that
challenges the prevailing bias in the conception of quantum physics should open the door for new
possibilities in the field, which should get the attention of theoretical physicists and mathematicians.
Every effort will be made to incorporate the results into my teaching, to give talks at the community
college at Jacksonville and at nearby universities of north and central Florida, as well as at
professional meetings and colloquia here and abroad.